Intergrated Kinetic and Transient FTIR Studies of Catalytic Oxidation Reactions

This is a study of the kinetics of the catalytic oxidation of small molecules on the surfaces of three noble metals supported on silica. Attempts will be made to measure the rates of primary processes and to identify the factors leading to kinetic instabilities in these widely used systems through modeling.